Renewed Support for Gatedaemon Project

Cornell University seeks an additional two years of support for its Gatedaemon Project. This partial support will help the project's mission of implementing and deploying freely available leading-edge internet routing software for the general good of the internetworking infrastructure. The Gatedaemon Project produces "gated," a modular software program which supports multiple routing protocols. This software was first used to interconnect the original NSFNET and the emerging regional networks. since gated's routing protocol implementations are freely available, as they have improved they have become de facto reference implementations. It is now distributed by several system vendors and used by several router vendors in their products. It is also considered to be a platform for routing protocol research.